Continuing Development of Broad Band Seisimic Sensors for the MPL OBH/OBS Instruments

This project will continue development of lower noise broad-band seismic sensors for ocean-bottom seismometers, and to construct new sensor packages to convert five existing ocean-bottom hydrophone instruments to seismometers.